U.S.-Hungary Research on Bioconversion of Lignocellulose

The primary objective of this U.S.-Hungary cooperative research project between Dr. Robert Tengerdy of Colorado State University and Dr. Jeno Toth of the Technical University of Budapest is to isolate and characterize lactic acid bacteria for ensiling to enhance enzymatic hydrolysis of lignocellulose. These efforts will address fundamental questions underlying the theoretical possibility of simultaneous ensiling and saccharification of lignocellulose such that, eventually, agricultural wastes and residues might be efficiently utilized on the farm for highly digestible animal feed. This project in biomass engineering fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Eastern Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.